Technician 2000

0074271
Diebold

This award to Columbia University in the City of New York provides shipboard technical support, shore-based support, as well as maintenance and calibration of shared-use scientific instrumentation, for researchers using R/V Maurice Ewing, a research vessel operated by the university's Lamont-Doherty Earth Observatory as part of the University-National Oceanographic Laboratory System research fleet. The award also provides support for research using portable seismic reflection instrumentation on other UNOLS vessels. The technical support awarded here will assist NSF-funded researchers conduct a diverse suite of marine geological and geophysical studies throughout the world ocean beginning in 2000.